Acquisition of a Micropurification/Microanaytical System

A group of four investigators requests funds to purchase a "Sensitive Manipulation and Recovery Technology" (SMART) System, which is a newly developed instrument with combined high performance liquid chromatography (HPLC) and fast protein liquid chromatography (FPLC) capabilities for microanalysis and purification of proteins and peptides. Two of the projects involve high resolution biochemical analysis of bioactive peptides in neuroendocrine tissues. Dr. Victor May's research program is examining the regulators of neuropeptide Y biosynthesis, secretion, and mRNA expression using cultured primary superior cervical ganglion neurons. Drs. Karen Braas and Edith Hendley are examining the roles of neuroendocrine peptides under different physiological states. Dr. Judith Van Houten is examining the chemosensory transduction pathway using Paramecium as a receptor cell. The instrument offers exceptional sensitivity for the detection of peptides and will allow reduction in the use of experimental animals and radioactivity and will enhance the speed of data acquisition.